Individual Nominee, Program- Master It

HRD-0429203

Dr. Elizabeth Yanik is a professor in the Department of Mathematics and Computer Science at Emporia State University (Kansas). Yanik is described as a passionate teacher who also directs and sustains mentoring programs -- the nomination describes six major mentoring activities or programs in which Yanik has been involved over the last decade. She is shown as being creative and resourceful in a rural area that may have a lack of resources. The panelists noted the rich impressions conveyed through nomination support letters from the students and also from a parent. Overall, she has great management skills in the various programs and is an excellent mentor; mentoring students 10-20 at a time and at various levels.

The submitted nomination package is in support of a Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM) to recognize outstanding mentoring efforts or programs that enhance the participation of historically underrepresented groups in science, mathematics, and engineering.